Organization of the 1993 ACS/OSA Topical Meeting on Organic Thin Films for Photonic Application, Toronto, Canada October 6-8, 1993

9315735 Quinn This grant is for support of a Topical Meeting on Organic Thin Films for Photonic Applications, to be held October 6 8, 1993 at the Royal York Hotel in Toronto, Canada.